Interacive Search of Complex Non-Indexed Data

The goal of this project is to implement and leverage a system that can
browse the past execution of a computer. "Browsing" refers to the ability
for a user to search, analyze, summarize, restore, or replay arbitrary data
or events that existed or occurred sometime in the past on that user's
computer. These capabilities depend on two foundational techniques.
Virtual-machine introspection allows the system to understand the execution
of a virtual machine as it executes or replays, without perturbing that
execution or replay. Virtual-machine replay allows the system to re-execute
a past time interval of the virtual machine instruction-by-instruction, yet
at only a few percentage overhead in time and space.

The ability to browse the past execution of one's computer can benefit
society by providing new capabilities to administrators, users, and
programmers. Administrators can use this ability to secure computers more
effectively by detecting past intrusions, which may help shrink the ranks
of "bot armies" controlled by criminals and spammers. Elderly people with
memory loss can use this ability to recall the events that occurred on
their computers, such as e-mail exchanges and GUI interactions. Programmers
can use this ability to fix difficult non-deterministic bugs and thereby
improve the overall robustness of the software on which society has come to
depend.